Behavioral Interactions and Population Responses

Bourne, G.R. ABSTRACT Behavioral Interactions and Population Responses Between Male Tr eefrogs Scinax rubra and Scinax garbei PI: Godfrey R. Bourne Proposal Number: 9630428 This study was prompted by my observations that loss of their closed-canopy, old second growth rainforest habitat to lumbering, has caused the Neotropical treefrog Scinax garbei to move into open-canopy brushy, second growth habitats occupied by a congener, S. rubra at Dubulay Ranch, Guyana. The appearance of S. garbei in these new habitats coincided with declining numbers of S. rubra. Males of these two species gather on vegetation at temporary ponds and large puddles for advertisement calling. Vocal communication plays an important role in establishing the structure and organization of frog groups or communities. Advertisement calls of male frogs contain information about species identity, location, and individual characteristics of the caller. In addition to attracting females, vocalization mediates spacing among males. In assemblages consisting of several species, interference from different species' signals transmitted through the same communication channel is a potentially strong evolutionary force shaping characteristics of call signals and structure of communities. Interactions that solely involve resources of communication are called acoustic competition. Acoustic interference may be reduced by: i) spectral separation of calls by simultaneously signalling species; ii) spatial separation of species; or iii) temporal separation of calling by species in the same habitat. Spatial separation may involve differences in geographic range, microhabitat or calling site. Shifts in species composition and the inclusion of additional species into a frog community may depend on: i) the existence of vaca nt acoustic niches; or ii) the ability of a species to modify its call frequency, timing of calling, or use of space in response to other members of the community. Although several studies have examined mechanisms of acoustic competition among frog species, I am not aware of any studies that have experimentally addressed their consequences for populations. Thus, I predict that inhibition of calling by one species because of calling by another, is likely to impact temporal and spatial use of habitat, and population size, of the poorer competitor. The effect of S. garbei on contemporary frog communities is largely unknown, although it may compete with other Scinax species at various locations. Competitive effects are known for the Neotropical, island dwelling whistling frog Eleutherodactylus johnstonei which impacts native and introduced species during range expansion by accidental introduction. Here I outline a 12 month (1 September 1996-31 August 1997) field project to examine the effects of invading S. garbei on the calling behavior and population densities of S. rubra at Dubulay Ranch, and CEIBA Biological Center, Guyana. I will answer three questions--1) Do males of the two species compete and what are the resources competed for? 2) What are the consequences of competition to the populations? 3) What are the mechanisms of competition? Using four large study plots with two replicates and four large enclosures, and using a sophisticated statistical design, I will examine the relationships of S. garbei and S. rubra behaviors and population sizes to different levels of frog species removals, and stocking densities. Data on the effects of a naturally occurring range expansion of a congeneric species on the behavioral and population responses of a resident member of a community are not available for mainland new world frogs. This study is significant b ecause it is the first to experimentally examine the effects of a naturally occurring range expansion of a congeneric species on the behavioral, population and demographic responses of a resident member of an anuran community. The immediate results should be relevant both to predicting effects of invading species on existing groupings, and to elucidating factors that allow coexistence of species in natural communities. This study should be an important contributor to the fields of behavioral ecology, herpetology, and tropical conservation biology. .